Structural History of the Columbus Promontory, Western Piedmont, Southern Appalachians: Thrust Faulting Processes in the Middle Crust of a Paleozoic Orogen

The Blue Ridge-Piedmont thrust sheet of the southern Appalachians is a "type example" of a composite thrust sheet produced by several events, yet the emplacement history, and its relationship to metamorphism and ages of plutonism are not well constrained. This project will investigate a relatively well- exposed area- the Columbus Promontory- in order to address emplacement mechanics and physical conditions of fault development on several scales. Field mapping, fabric data, radiometric age data of plutons and fault rocks, and geothermobarometric data will be collected and employed in an effort to constrain these large structures and discern their evolution.